Mathematical Sciences: Research Equipment

9406679 Wu The Department of Statistics at the University of Michigan will purchase equipment which will be dedicated to the support of research in the mathematical sciences. The equipment will be used for several research projects, including in particular: development of the multiple marker sib pair linkage test, statistical methods for quality and productivity, nonparametric inference, isotonic regression, and computing in Bayesian Gibbs sampling and supersaturated designs.